The Fifth International Conference on Strongly Coupled Coulomb Systems; August 3-10, 1997; Boston, Massachusetts

This grant is for support of students and young researchers to attend the 1997 International Conference on the Physics of Strongly Coupled Coulomb Systems in Boston, Mass.